Isoperimetric Inequalities

Abstract for DMS - 0104363

The investigators' research focuses on establishing sharp geometric
inequalities that are invariant under linear or affine transformations
and using them to obtain new analytic inequalities. Since an affine
structure contains no notion of distance or angle, one might think that
there is little to say or do. In fact, there is a rich and deep theory
that already encompasses many of the most important aspects of Euclidean
geometry, including the sharp isoperimetric and Sobolev inequalities.
Most of the investigators' efforts will be devoted to developing and
understanding the Brunn-Minkowski theory and its generalizations.

The investigators' work involves some of the most fundamental objects in
mathematics: bodies in and functions of ordinary Euclidean space. These
are used to represent real objects and phenomena in science and
engineering. Although it is impossible to predict the future impact of
this work, the investigators believe that the concepts and techniques
developed in this project could prove to be useful in fields ranging from
pure mathematical areas such as differential geometry, partial differential
equations, and Banach spaces to more applied areas such as robot vision,
information theory, and stereology.